Excited State Multielectron Chemistry

This renewal award is made in the Inorganic, Bioinorganic and Organometallic Chemistry Program in support of the research of Dr. Daniel Nocera. The thrust of the research is the photo-driven, two-electron oxidation-reduction reaction between metal centers in binuclear transition metal complexes. The research will include the synthesis of quadruply-bonded tungsten and molybdenum complexes, mixed-valence binuclear rhodium complexes, and layered vanadium and niobium phosphates intercalated with dimolybdenum and dirhodium cores. Photoexcited intermediates will be characterized by picosecond and nanosecond time-resolved excited-state spectroscopy with the ultimate objective of understanding the mechanisms of multi-electron processes. %%% Some of the chemical systems to be studied in this project are appropriate to energy-converting multi-electron transformations such as splitting hydrogen chloride into hydrogen and chlorine, while other systems will be used to prepare novel photoactive layered solids possessing multi-electron reactivity.